Harmonic measures, potentials, approximation and polynomials inequalities on general sets

Research will be done in connection with metric properties of harmonic measures on infinitely connected domains, in connection with polynomial inequalities and orthogonal polynomials. The estimates for harmonic measures/Green functions
will be given via a local integral involving a density function associated with
the boundary of the domain. Such results directly lead to estimates for polynomials in the complex plane and to extensions of some classical
polynomial inequalities for general compact sets. The results, in particular, will allow to find the order of the Markoff factors for Cantor-type sets, which in turn
will produce compact sets of zero measure for which the Markoff factors are of the minimal growth order O(n^2). Weighted polynomial inequalities
with respect to general (say doubling) weights will also be studied together with applications in connection with approximation theory and orthogonal polynomials.
Another part of the research is polynomial approximation and orthogonal
polynomials with varying weights (the weight varies with the degree), which
will be studied with the help of logarithmic potentials in the
presence of an external field. The approximation problem is fundamental
in proving appropriate asymptotics for Christoffel functions
and orthogonal polynomials with varying weights, that in
turn can be used to test the universality hypothesis in statistical-
mechanical models of quantum physics. The proposed research uses different tools from classical analysis, but the main method is potential thoretic.

Research will be done in mathematical analysis. The main effort will be to find new ways to estimate some classical quantities and to extend some well known results to more general situations. These will allow wider applicability
of several classical tools and will provide some new insights into the theoretical aspects of some fundamental questions in approximation theory
and orthogonal polynomials.